CISE Research Instrumentation: Instrumentation for Virtual Environments Integrating Dynamics and Real-Time Interactivity

CDA-9529518 Kearney, Joseph K. Cremer, James F. Kuhl, Jon Portra, Florian University of Iowa Instrumentation for Virtual Environments Integrating Dynamics and Real-Time Interactivity The equipment for high-speed computation and real-time image generation is used for a coordinated set of research projects attacking the computational requirements of interactive, real-time simulation with rich physical and behavioral interactions. The research focuses on four related areas: (1) Merging geometric analysis, dynamic analysis, and control programming for interactive, real-time multibody simulation; (2) Numerical methods for fast, accurate solution and integration of motion equations; (3) Scenario authoring and behavior modeling for semiautonomous agents; and (4) Distributed, real-time systems. building on existing facilities, the instrumentation provides a combination of compute power, graphics power, interaction hardware, and workstations to support real-time simulation and virtual environments research.